Testing the Theory

Boston Museum of Science seeks funds from the National Science Foundation fort the development of a group of interactive exhibits and educational programs that will comprise the Museum's permanent TESTING THE THEORY activity center. The project is part of a new approach to exhibits that aims to make the experiences available to visitors closer to the actual process of scientific discovery. Visitors will carry out experiments in fields ranging from chemistry and cognitive psychology, to statistics, optics, and materials science. The focus will be on promoting specific experimental skills and scientific habits of mind, and on encouraging the transfer of these skills to everyday activities. The exhibit techniques developed during the prototyping and production of TESTING THE THEORY are expected to be of importance to science museums and others concerned with increasing science literacy. ***